WORKSHOP: Understanding Urban Ecosystems: A New Frontier for Science and Education (April 27-29, 1999 at The Institute for Ecosystem Studies in Millbrook, NY)

Abstract

Berkowitz - 9818507

Funds are solicited to support an international conference on "Understanding urban ecosystems: A new frontier for science and education." It will be the eighth Cary Conference held at the Institute of Ecosystem Studies in Millbrook, NY.